Conference: The Langlands Programme: Recent Trends, New Developments, and Applications

The conference "The Langlands Programme: Recent Trends, New Developments, and Applications" will take place 7-17 July 2026 at the University of Sheffield. This is a two-week program held in partnership with London Mathematical Society Symposia that will feature leaders in the number theory from around the world. This award will contribute to the training of graduate students and postdocs from the US, who will be exposed to some of the most exciting frontiers of the field. Especially, the junior participants will have an opportunity to form connections with senior scientists from all over the world.

The first week is a summer school designed to expose PhD students to four major research arcs in the Langlands program: trending developments, explicit constructions, the relative Langlands program, and analytic aspects. The second week is a symposium wherein international experts in each of these areas will give research talks on the state of the art. Each of these themes have active research groups worldwide, with regular specialized meetings. The objective, novelty, and opportunity of this two-week conference is to bring a balance of experts together from these four arcs to discuss the latest advances, interconnections, and synergies between the themes. More information is available at https://sites.google.com/view/langlandsprogrammelmssheffield/.